Emergency Analysis and Community Meetings for the Wales Archeology Project

This project is a RAPID award that will facilitate the researcher's negotiation with the Native Community of Wales over the disposition of and access to the artifacts and materials recovered from excavations in previous years. In addition, the funds will support the researchers consultation with the Tribe and the completion of the artifact descriptions and analysis in preparation for publications.